Student Support: 2018 Manufacturing Science and Engineering Conference and 46th North American Manufacturing Research Conference; College Station, Texas; June 18-22, 2018

This award supports 78 graduate and undergraduate students studying at US institutions to participate in the co-located conference event consisting of the 2018 International Manufacturing Science and Engineering Conference sponsored by the American Society of Mechanical Engineers and the 46th Annual North American Manufacturing Research Conference sponsored by the North American Manufacturing Research Institution of the Society of Manufacturing Engineers. These two leading conferences in the Manufacturing Engineering field act as global bridges between industries, government laboratories, and academic institutions. The award provides student participants with opportunities to exchange ideas with leading researchers and engineers from worldwide industrial and governmental facilities, as well as with students and faculty from both domestic and international schools. In addition to nurturing a global manufacturing vision, participants will learn the latest research areas and results in manufacturing fields.

Submitted applications go through a selection process by the conference committee. Eligibility criteria to receive the support are described in the proposal, but the approach prioritizes underrepresented groups and students that are actively engaged in the conference through papers or posters. The grant administrators will make an effort to recruit underrepresented minorities and women students and to obtain a balanced representation from many universities. The support will cover (1) the registration fees, and (2) the accommodation cost in a shared room for the entire duration of the conference. The call for student support applications is disseminated through posting on main conference websites; promulgation through conference organizers, track chairs, and symposium organizers; and direct communication with students involved in poster session, student design competition, and student author research presentation competition. The submitted applications go through a selection process by the conference committee. The eligibility criteria to receive the funding include (1) students must be from US institutions, and (2) students must be actively participating in the conference through presenting a paper or poster, or participating in a competition. The two highest selection ranks are given to students who have multiple technical papers accepted and students who present technical papers resulting from research supported by NSF. After the conference, the list of student awardees will be announced on the main conference website, in the Manufacturing Science and Engineering 2017 post-conference report in the Manufacturing Engineering Division's Newsletter, and in the Award and Recognition section on the North American Manufacturing Research Institution's website.